Clifford Lectures 1996

DMS 9622408 RIEDEL This proposal asks for participant support costs for graduate students and younger researchers to attend the Clifford Lectures at Tulane University in the Spring of 1996. This conference will bring together researchers in the areas of free entropy and noncommutative probability. Both of these fields are actively funded by NSF and the main speakers holds a 5 year NSF grant. The Tulane department is taking an active role with volunteer assistance and financial support.